Dynamics, Geometry, and Control of Discrete Mechanical Systems

The objective of this project is to study discretizations of
mechanical systems with constraints. This study is motivated by the
facts that such discretizations may be used for numerical simulations
of mechanical systems and that problems of studying periodic motions
in mechanics and control are intrinsically discrete. The proposed
research is aimed at two areas:
(i) Structurally-stable and structure-preserving discretizations of
systems with velocity constraints. The dynamics of systems with
velocity constraints is remarkably diverse. The goal is the
development of discrete dynamical systems that adequately represent
the continuous-time constrained dynamics.
(ii) The use of such discretizations in stabilization of periodic
orbits of mechanical systems. It is anticipated that such control
techniques will be especially useful in cases when the period is long
and/or intrinsic structure of controlled systems should be preserved
during numerical simulations.

The dynamics of systems with constraints is important in various
industrial and scientific applications. Such constraints include
rolling and sliding constraints, chained rigid links, and various
constraints found in thermodynamics and electromechanical systems.
There are numerous instances in industry, engineering and science
where such constraints arise: robotics, the dynamics of wheeled
vehicles, and the motion of satellites in space are examples. In
applications, stabilization of periodic motions may be desirable--for
example in achieving a desired robotic or autonomous vehicle motion.
Our methods should be helpful in analyzing and prescribing motions of
constrained systems, such as robotic and autonomous vehicles.